Research Initiation: Scaffolding Responsible AI Use through Conversational Microlearning for the Professional Formation of Engineers

Generative artificial intelligence (GenAI) is becoming part of everyday learning in college classrooms. GenAI tools can help students access information quickly, which is an advantage, but they can also make it easier for students to bypass the careful and necessary work of reasoning through a problem, testing ideas, learning from mistakes, and reflecting on decisions, which is a concern. This concern is particularly important in engineering and computing education where students are preparing for careers that require both technical skill and professional judgment: future engineers need to recognize when AI can be useful and when it may be unreliable, and how to use it in ways that support ethical problem solving. The project will address the timely national question of how institutions of higher education can help engineering students learn with AI while preserving authentic learning, academic integrity, persistence, and reflective judgment. This project will respond to that need by implementing ALAASKA, an existing AI-enabled adaptive tutoring platform, in an undergraduate computing course and evaluating how it shapes students’ learning experiences. ALAASKA provides real-time, adaptive support based on students’ responses, without requiring extensive existing student data or repeated diagnostic testing. Through brief activities such as quizzes, flashcards, scenario-based prompts, and reflection questions, the ALAASKA platform supports students’ reasoning process rather than simply providing answers: it prompts students to explain their thinking, persist through difficult steps, connect course concepts to realistic professional contexts, and reflect on how they reached their conclusions. By studying ALAASKA in a large undergraduate computing course, the project will provide early evidence on how AI-supported learning tools can strengthen, rather than replace, student reasoning, providing insights on how students engage with different AI-supported learning platforms, and on how to improve the learning itself. The work will align with the Research Initiation in Engineering Formation (RIEF) program by advancing research on the professional formation of engineers and supporting the principal investigator’s development as an engineering education researcher to help expand the Engineering Education research community. This project will help NSF build a research foundation for preparing future engineers who are technically capable, ethically aware, and able to use AI thoughtfully in a changing workforce.

The project will evaluate ALAASKA’s impact on certain kinds of student learning experiences. Guided by Self-Regulated Learning theory and the ABCE AI Literacy Framework (comprising Affective, Behavioral, Cognitive, Ethical dimensions), the study will examine how conversational microlearning supported by the AI-enabled platform supports three behaviors central to professional formation: value-driven reasoning, persistence, and reflection. The research will address two questions: how ALAASKA affects students’ self-regulated learning behaviors in the context of widespread generative AI use, and how patterns in student-system conversations can help identify and explain those behaviors. The study will use a concurrent mixed-methods design in two sections of a Programming Language Concepts course at Pennsylvania State University; one section will complete course activities using ALAASKA, while a comparison section will complete equivalent activities through the course learning management system. The sections will use aligned syllabi, assignments, rubrics, and grading policies to support their comparison. Quantitative data will include pre- and post-surveys, course performance measures, assignment and exam grades, platform interaction logs, and learning management system traces. Qualitative data will include student reflections and selected conversational interactions, which will be analyzed to understand how students describe their reasoning, effort, ethical choices, and use of feedback. The project will be supported by mentors with expertise in engineering education assessment, mixed-methods research, inclusive pedagogy, and AI in engineering education, and an advisory board that will assess the success of the project in areas such as research design, data analysis, active learning, and mentoring. Expected outcomes include empirical evidence on the educational impact of conversational microlearning, refined instruments and coding rubrics for studying AI-supported learning, design guidelines for integrating conversational scaffolding into large STEM courses, and a foundation for future multi-institutional research on ethical and reflective AI use in engineering education. The team will share results and research tools with national and international research audiences and faculty practitioners through publications and workshops at conferences, and with local academic practitioner and faculty development audiences through Penn State's Leonhard Center for the Enhancement of Engineering Education.